26th International Conference on Mathematical Geophysics: Student and Early Career Scientist Support; Tiberias, Israel; June 4-8, 2006

0624648
Spiegelman

26th International Conference on Mathematical Geophysics: Request
for student travel support

Marc Spiegelman (LDEO/Columbia), David Yuen (U. Minn) and Peter Fox (NCAR)
This proposal requests funds to help support travel and meeting costs for students and
early career scientists at U.S. institutions to the 26th International Conference on Mathematical
Geophysics Coupling in Earth Systems: Solids, Fluids, Life to be held in
June 4 - 8, 2006 near Tiberias, Israel on the Sea of Galilee. The conference website is
http://www.weizmann.ac.il/conferences/CMG2006/.
Intellectual merits This conference brings together Earth scientists from across the disciplines
with physicists, applied mathematicians, and computational scientists to discuss
advances in mathematical and computational techniques for understanding properties and
processes in the earth. This years meeting emphasizes understanding coupled systems
such as coupled convective systems (ocean-atmosphere, mantle-lithosphere), coupled fluidsolid
mechanics, interactions between the biosphere and geosphere, and in particular, interactions
between humans and the earth through natural hazards. Many, if not all, of
these problems require techniques for investigating, multi-scale, multi-physics problems
and the meeting will emphasize both analytical and advanced computational methods for
such problems. This meeting provides a single multi-disciplinary forum for the exchange
of ideas and techniques across the disciplinary boundaries in the Earth Sciences. Funds
are requested to support travel costs for 20 students, post-docs and early career scientists
which is approximately half the number attending past meetings.
Broader Impacts This meeting is highly interdisciplinary and international in nature and
provides an important opportunity for U.S. students and early-career scientists from across
the earth sciences and applied mathematics to interact with senior scientists in a small informal
setting. This year there will also be an increased emphasis on mathematical aspects
of natural hazards in an attempt to understand how to merge fundamental knowledge of
earth processes with risk management and societal needs.